Accuracy of Structural Response Analyses Making Use of Artificial Accelerograms (Engineering)

This project involves the study of the accuracy of structural response analysis making use of artificial accelerograms.